Conference: Dagstuhl International Conference on Molecular Bioinformatics in Dagstuhl, Germany, July 10-14, 1995

Since the discovery in 1953 of the double helix by Watson and Crick, a great deal of effort has gone into the determination of RNA, DNA, and protein sequences. Today, over 150 million letters of DNA sequence have been determined in segments averaging 1000 in length from a large variety of organisms. This impetus is typified by the human genome project which has received a great deal of press and discussion. This information explosion is stimulating a natural symbiosis between molecular biology and computer science. New computational methods are required to obtain, organize, compare and interpret the vast amounts of macromolecular sequence information now being collected. Efforts in this direction are being made in many parts of the world; there is a continuing need for a comprehensive international conference to bring together leading researchers who use a variety of disparate approaches and techniques. The Dagstuhl seminar on molecular bioinformatics is designed to address this continuing need. The first Dagstuhl Seminar on molecular bioinformatics was held. The second seminar will be held July 10-14, 1995.